A Laboratory Experience in Polymers Engineering

The emphasis of this project is the acquisition of equipment, computers, and software in order to provide undergraduate students in the Department of Materials Engineering with a strong laboratory experience in polymers engineering. This focus is accomplished by providing the students with a "complete" engineering experience. They use fundamental knowledge and apply it to a creative design sequence in order to solve a practical problem in polymer engineering. Specific goals of the effort are to introduce the students to state-of-the-art software used in the industry for design and optimization of injection molding molds and to injection molding processing parameters; to provide the students opportunities in the operation and principles of injection molding; and to allow the students the opportunity to compare their predictions from the software to real part fabrication. To achieve these goals, the contents of a currently offered course can be revised. In order to improve the teaching effectiveness and alleviate the current problems, the project develops laboratory modules focusing on the use of C-MOLD, a state-of-the-art software package, for the prediction of flow times, pressure, temperature, warpage and shrinkage, and degree of crystallinity during fabrication of plastic parts; the experimental validation of the modeling predictions on a fully instrumented mold with pressure gages and thermocouples; and the design of a mold and the optimization of processing conditions to produce a part that the students select and design. Students give an oral presentation in which they are required to convince a manager that the part is possible to produce, an improvement over current technology, cost effective, and marketable. They also produce the technical/marketing brochure that would be used in sales.